CAREER: Emergent Magnetism in Engineered Oxide Heterostructures

Non-technical Abstract: This CAREER project aims to establish new ways to create and control novel magnetic behavior in specially designed materials, while integrating research, education, and outreach to advance quantum materials science and train the future workforce. In these systems, magnetism emerges from the combined interactions of electrons, the arrangement of atoms, and the overall structure of the material, leading to behaviors that cannot be predicted from individual atoms alone. Examples include swirling magnetic patterns, unusual forms of magnetic order, and new ways in which electricity flows, all of which are central to emerging quantum technologies. Although many of these effects have been discovered in recent years, scientists still lack general methods to reliably design and control them. This project addresses this challenge by creating layered oxide materials with carefully engineered properties. Educational activities include developing new courses in quantum materials, providing hands-on research training for students, and engaging the public to increase participation in modern materials science.

Technical Abstract: The project addresses the fundamental challenge of how to design and control emergent magnetic states in quantum materials. It establishes an engineering framework based on symmetry control, interface design, and magnetic coupling in complex oxide heterostructures. Three interconnected objectives are pursued: (1) stabilizing and controlling magnetic skyrmions, (2) engineering Berry-curvature junctions with nonreciprocal transport properties, and (3) realizing synthetic altermagnetism through the integration of oxide layers with contrasting structural, magnetic, and electronic properties. Thin films and heterostructures are synthesized using pulsed laser deposition and investigated using x-ray diffraction, magnetotransport, vibrating sample magnetometry, and cryogenic ferromagnetic resonance measurements. This approach combines materials synthesis, device design, and low-temperature characterization to uncover mechanisms governing emergent magnetism. The resulting knowledge establishes fundamental design principles for engineered quantum materials and enables new functionalities relevant to spintronic and quantum information science.